Computational Methods for Bulk Solid Handling Problems

The mechanical behavior of granular materials is still only partially
undertsood even though many continuum models have been proposed. The
goal of this project is to build, study, implement and test efficient
and reliable numerical methods allowing for a quantitative study and
comparison of those models. Specific problems to be studied include wave
propagation in bulk materials, static granular piles, multiphase models
for fine powders and multidimensional granular flows. In all those
problems, dry friction plays a central role. Depending on the problem
and its formulation, the presence of frictional effects manifests itself
mathematically in various ways: presence of a graph, stiff source term
in systems of balance laws, algebraic constraints. Each of those
difficulties leads to new numerical challenges. The wide variety of
mathematical problems resulting from the modelization of the above
phenomena (differential inclusion, systems of conservation laws, balance
laws, Hamilton-Jacobi equations, elliptic and parabolic problems,
non-local free boundary problems) is a testimony to the incredible
richness of this field.

In countless industries, materials have to be processed, stored and
retrieved in granular form. Surprisingly many problems occur during
those various phases. Difficulties range from the complete structural
collapse of silos during discharge to poor performance and
unpredictability of the manufacturing process. This comes at a very high
financial cost to solid processing plants. It is proposed to design and
implement, in consultation with engineers from both Academia and
Industry, numerical methods that allow for the calculations of granular
flows and related problems in general geometries. The current methods in
use date back to the 1950's and have limited predicitive capabilities.